Oceanographic Technical Services

0071998
Deering
This award to University of Delaware provides shipboard technical support, shore-based support, instrument maintenance and instrument calibration for researchers using R/V Cape Henlopen, a research vessel operated by University of Delaware's College of Marine Studies as part of the University-National Oceanographic Laboratory System research fleet. The technical support awarded here will assist NSF-funded researchers conduct oceanographic studies in the Chesapeake Bay and along the east coast of the United States in CY2000 and beyond.
***